Presidential Young Investigators Award: Problems in Modern Materials Processing

This research by a Presidential Young Investigator is focused on several thrusts in the area of fluid flow with complex, non- Newtonian fluids. The approach is both theoretical/numerical and experimental. The areas are: composites, polymer melts, and suspensions; viscoelastic instabilities; and material transport characteristics. In addition, layer phenomena related to plasma etching and bilayer lithography are included in the research plans. Impact of the research will be on improved process control for superior material characteristics involving electronic materials and solid fiber composites.